STRATMAN: Design and Operation of Cellular Manufacturing Systems

Flexibility for product customization, low variable production cost, short lead times, and high quality of manufacture have become essential for maintaining competitiveness in discrete parts manufacturing. Cellular Manufacturing (CM), the assignment of dissimilar machines and workers to a team to produce one or more families of similar parts, has been shown to be effective at achieving all four performance measures. This project will be devoted to enhancing the ability to optimally design and operate CM systems. The specific objectives include: (1) interacting with industry interested in CM to determine the real-world objectives and key constraints of cell formation; (2) development of optimal cell formation algorithms based on the realistic cell formation problem formulation using discrete and stochastic optimization techniques; (3) inclusion of human and organizational factors into the cell design problem including issues such as group recognition systems, employee cross-training, multi-functional operation, decentralized organizational structure, performance measurement and activity-based costing; (4) determination of optimal cell operation strategies for various environments including the use of pull type systems, mixed and multiproduct model scheduling, and determination of optimal work scope for cross-trained operators; and (5) transfer of developed techniques to industry. Relative to existing results for CM, the research will significantly broaden the scope of the CM design problem to include all relevant factors including flexibility to temporal changes and training/allocation of employees. In addition, the application of new production strategies to cells will be examined analytically. The anticipated outcome of this project is a clear understanding of how to optimally design and operate cells from both a technical and human perspective, and an estimation of the improvements from CM relative to process layouts as a function of the manufacturing environment.